Classification Problems

9970403
Hjorth
Since many mathematical objects arise as the quotients of some
concrete space by an equivalence relation, attempts to classify such
objects leads naturally to the study of equivalence relations on Polish
spaces and the reducibility order between these equivalence relations. In
particular, Hjorth's project addresses structural issues about the Borel
equivalence relations in which every equivalence class is countable, and
orbit equivalence relations on Polish spaces arising from the continuous
actions of Polish groups somewhat more complicated than the infinite
symmetric group. In the first case, there is a poverty of techniques for
distinguishing the Borel cardinalities of the quotient spaces, and in the
second, he would hope to extend the methods from model theory that have
been so wildly successful in the case of the infinite symmetric group.
In a very rough sense, one might try to divide mathematics into the
part that seeks to determine some quantity or equation and the part that
seeks simply to understand some abstract class of mathematical objects.
In the former part one has many examples, ranging from areas of applied
mathematics through to the recent proof of (the inequality comprising)
``Fermat's last theorem.'' In the second part one has certain areas in
abstract analysis (for instance, the classification of commutative C-star
algebras), or even certain parts of topology (the classification of two-
dimensional manifolds), or algebra (for instance, perhaps, the Hecke
algebras, which played such an important part in Wiles's proof), and the
very abstract kinds of objects that can appear there. Here the intention
is that simply understanding these objects can lead to unforseeable advances.
Hjorth's project concerns this second kind of mathematics, and it might be
loosely described as concerned with which kinds of objects from one
mathematical specialty can in principle be reduced to which other kinds of
objects from other subspecialties.
***